Tenth Workshop on Grand Unification; Chapel Hill, North Carolina; April 20-22, 1989

The Tenth Workshop on Grand Unification will be held at the University of North Carolina in Chapel Hill, April 20-22, 1989. The Workshop will include discussion of supersymmetry, superstrings, quantum cosmology, grand unification, technicolor, axions, neutrino mass, dark matter searches, and other topics. These are some of the most interesting topics in elementary particle physics today.